Research Initiation: Controller Complexity in Linear Systems

The problem of feedback control in the framework of linear systems has been extensively investigated over the years. Although the theories developed settled a number of important issues, they generally failed to address the problem of the complexity (i.e., MacMillan degree) of the resulting controllers. The aim of this research is to investigate problems related to low complexity controllers, using the partial realization approach. In particular, the work will encompass aspects of the partial realization problem as applied to the H-infinity optimization problem and the problem of pole placement by dynamic output feedback. The motivation for the work is that in the first problem, no provision for controller complexity exists in the current theories and in the second problem, the existing results are only partial. The significance of the proposed research lies in the fact that the complexity of the controller is an important design parameter in feedback control. Consequently, the design methods should give the engineer the freedom of choosing it so as to meet design specifications.